Enhanced Photochemistry at SERS Active Electrodes

This project is in the general area of analytical and surface chemistry and in the subfield of photochemistry/surface enhanced Raman spectroscopy. The thrust of this program is to find whether enhanced photochemistry takes place on gold and silver electrodes which have been roughened by an oxidation/reduction cycle as is used in the surface enhanced Raman scattering pretreatment technique. The surface enhanced Raman spectroscopy will be used to follow concentration-time profiles of reactants, intermediates, and products of various photochemical processes. Since this program is closely related to photoelectrocatalysis, photoelectrochemical energy conversions, and photobiological processes, the proposed studies have practical as well as fundamental implications. As a result of this research, for example, the efficiency of photogalvanic cells may be improved.